Altering the Course of Chemical Dynamics Phenomena

Herschel Rabitz is supported by a grant from the Theoretical and Computational Chemistry Program to develop new techniques aimed at enabling chemists to control the outcome of a chemical reaction using a sequence of laser pulses. An external control field will be used to access quantum states of a chemical system that otherwise would not normally be reached without such intervention. The general control principle consists of actively manipulating quantum wave interferences. Optimal control theory provides the most general framework for achieving the molecular control objectives. Real-time feedback from the experiment in progress coupled with learning control algorithms will be used to obtain the optimal pulse sequences for the desired outcome.

Since the invention of the laser, chemists have dreamed of selectively exciting regions within a molecule thus causing a controlled chemical reaction to occur. It was long ago realized, however, that intramolecular vibrational energy redistribution occurs so rapidly that it is impossible to concentrate enough energy in a selected bond to cause it to break. Now, with the advent of laser pulse modulation techniques, and the application of control theory, it appears that the dream of laser selective chemistry may become a reality.